Conference on Development: Molecules, Mechanisms, and Phylogenetics to be held at Bodega Marine Lab., in Sept. 95.

9417965 JEFFERY This award will support travel costs, subsistence, and meeting registration for participants in a Conference on Development: Molecules, Mechanisms, and Phylogenetics that will be held at Bodega Marine Laboratory, University of California, Davis, in September 1995. Plans include selecting eight young scientists (graduate or postgraduate students) whose attendance will be supported. This is an exciting subject which integrates molecular phylogenetic systematic methods with the study of development. %%% Such comparative methods can be very important for understanding how developmental mechanisms have changed within major groups of organisms and contribute to this aspect of our understanding of the earth's biodiversity. ***